Sharper Ears for Fainter Signals: Detecting the Elusive Gravitational-Wave Signals with Improved Detector Characterization and Data Analysis

This award will build on the groundwork of the LIGO-Virgo-KAGRA (LVK) collaboration to advance the discovery potential of gravitational wave astronomy. It will improve the quality of the strain data of the LIGO detectors by developing and applying both established and innovative techniques to identify instrumental and environmental noise sources and understand their coupling to the detectors. These insights will be used to remove or mitigate them and their coupling pathways, thereby enhancing the sensitivity of LIGO’s astrophysical searches. The project will also forge new data analysis methods for detecting gravitational wave signals that have so far remained elusive, such as the astrophysical stochastic GW background (SGWB). By delivering good-quality data and increasing detector duty cycle, a broad range of multi-messenger astronomy investigations will be supported.

The award will enable significant contributions to LIGO detector characterization (DetChar) and ensure that the opportunity afforded by its fifth observation run “O5” for discovering rare or new kinds of signals and sources is fully realized. The upgrades of the LVK detectors, along with improved DetChar investigations, will maximize the likelihood of detecting the astrophysical SGWB, in addition to other previously unobserved signals. Produced by the unresolved population of compact binary coalescences (CBCs), the astrophysical SGWB complements individually resolved CBC detections by encoding the cosmic history of compact binary formation, stellar evolution, and star formation across the Universe. Achieving this scientific goal requires precise characterization and mitigation of detector noise, particularly correlated magnetic noise that can mimic a stochastic background. The project will improve measurements of the transfer functions relating magnetic-field fluctuations to the interferometer strain, enabling more accurate modeling and accounting of magnetic noise. It will also develop advanced analysis methods to jointly estimate the astrophysical SGWB and correlated environmental noise, including magnetic fields generated by Schumann resonances. Moreover, by maintaining and improving detector characterization tools and the Data Quality infrastructure, the award will help the collaboration diagnose and identify noise sources that limit detector sensitivity.